Interactive Modules For Courses Following Calculus

9352889 Moore The authors are developing interactive laboratory and classroom materials to support follow-on courses for students completing reformed calculus course: linear algebra, differential equations, and applied mathematical analysis. A seven-member development team, working at five different institutions over a two-year period, will develop approximately 70 interactive text modules. Each module will be developed in one of the systems Mathcad 3.1, Maple V, or Mathematica, and translated by student assistants to each of the other two system. This project will build on and reinforce the acquired concepts and shared experiences of students moving on from reformed calculus courses. These students know how to work in a lab, how to work with partners, and how to work on their own. Moreover, they have had introductions to many of the important ideas that will be developed further in the follow-on courses. Such students will find conventional courses less than satisfactory as preparation for their scientific or engineering careers in the 21st century. The modules to be developed by this project will enable students to work with significant and realistic problems in a modern computer environment that allows the to experiment to vary examples endlessly, and to control the order and pace of their learning.